COLLABORATIVE RESEARCH: Tectonic Origin and Development of an Isotopically Mixed Crustal Boundary Zone: The Proterozoic Mojave-Yavapai Boundary, Southwestern U.S.

9418521 Duebendorfer The assembly of cratons involves formation of crustal-scale boundaries as disparate crustal blocks collide and amalogmate. Understanding of these boundaries in younger rocks is aided by relatively shallow levels of exposure and relatively clear lithologic and temporal differences. However, aspects of precambrian terrane boundaries remain problematic due in part to deep levels of exposure and reliance an isotopic data for terrane discrimination. This collaborative project will employ a variety of techniques and study one Precambrian boundary (Mojave and Yavapai) in considerable detail, with the goal of formulating a tectonic model for development of the zone that honors all geologic constraints. Results will lead to increased understanding of crustal boundaries in deeply eroded ancient accreted terranes.